Workshop on the CAD Needs for Supporting System Design for the Next Ten Years; Boulder, Colorado, March 1995

This workshop is to develop a seminal statement about research topics needed in developing a science of tools for electronic systems design. It brings together academic and industrial researchers with experience in VLSI chip, electronic system, and other design automation fields to integrate their varied points of view. The workshop facilitates the integration of a wide range of design automation research ideas, and their integration into a new science for systems design.